Support for Workshop on "Geographic Information Systems and their Application in Geotechnical Earthquake Engineering"

Geographic Information Systems (GIS) are a computer-based system used to capture, manage, edit, manipulate, analyze, synthesize and output geographically-referenced information. The objective of this workshop is to convene selected researchers and practitioners from academia, government and industry to exchange information and ideas relating to GIS technology, and to provide guidelines for others using or considering the use of this technology in geotechnical engineering, especially in geotechnical earthquake engineering. The workshop will be held in Atlanta, Georgia during the summer of 1992, at the Georgia Institute of Technology, thereby benefiting by the presence on this campus of the Center for Geographic Information Systems and Spatial Analysis Technologies. Rapid development of a variety of information systems, resulting from the large demand to implement this technology, has led to a frequent failure to clearly distinguish between GIS and other similar systems which do not have the ability to integrate geographically referenced data analytically. In addition, the inherent compatibility limitations between systems have led to restricted usage of databases and the software used to manipulate them. These potential problems will be addressed at the workshop.